Mission Discovery

The "Mission Discovery" project targeting middle school youth is a collaborative endeavor between the Carnegie Science Center (CSC) and the Hill House Association. This year-round project will work with inner-city children from communities in southwestern Pennsylvania. Thirty middle school students will experience standards-based, creative programs and activities. Physical Science, Life Science and Earth & Space Science will be the content focus of the project. CSC provides the mathematics and science expertise while the Hill House Association (serving six predominately low-income African American communities) provides the community, recruitment and staffing expertise.